Research Initiation: Nonequilibrium Transport Phenomena in RF Discharges

This research program involves theoretical investigations of the nonequilibrium transport phenomena of charged particles under the influence of rapidly space-time varying fields in rf discharges. The program has two objectives: first, obtain a nonequilibrium fluid description of the behavior of charged particles in terms of density, mean energy, and average velocity; this nonequilibrium fluid description is able to model the ballistic transport phenomena in rapidly space-time varying fields and will be compared to a kinetic description and experimental results to assess the validity of the description; secondly, develop a parallelized code on CRAY X-MP/24 to self-consistently simulate the transport of charged particles in the rf discharges of the Gaseous Electronics Conference RF Reference Cell multidimensionally based on the nonequilibrium fluid description and compare the simulation results with experimental results. Successful completion of this investigation will contribute to the understanding of the nonequilibrium transport phenomena of charged particles in rf discharges and to the design of rf plasma processing reactors.